Mathematical Sciences: Algorithms for Constrained Approximation and Optimization

Workshop on Algorithims for Constrained Approximation and Optimization May 23--26, 1993 Stowe, Vermont The Organizers: D. Zwick, University of Vermont R.A. Zalik, Auburn University The "Workshop on Algorithms for Constrained Approximation and Optimization" will bring together leading researchers in numerical analysis and approximation theory to discuss new and innovative approaches to solving difficult problems in the area of constrained approximation and optimization. The participants, who will come from a academia, private and government research institutes, and industry, are mostly experts in either constrained approximation or constrained optimization. While there is a nonempty intersection in the problems and techniques familiar to these two groups, there has not been much interaction and cross-fertilization between them. The purpose of the proposed workshop is to provide a pleasant and productive setting for participants to engage in an interchange of ideas, to foster collaborative research among the participants, and to expose young researchers and graduate students to the exciting mathematics being done at the forefront of these fields.